Neutrons from Electron and Proton Induced Reactions at Medium Energies

9409265 Anderson Research will be carried out in nucleon and nuclear structure via electron and proton induced reactions. Polarization transfer in neutron-proton charge exchange reactions will be used to probe the medium effects on the nucleon-nucleon potential. The charge- structure of the neutron will be probed in polarization transfer studies of electron-induced neutron knockout reactions. A high- efficiency neutron polarimeter will be assembled and calibrated for these purposes. The charge exchange reactions will be carried out at the Indiana University Cyclotron Facility, while measurements of the neutron's charge structure will be carried out at the MIT/Bates lab and at CEBAF. Other related experiments will also be carried out at these laboratories. ***